Purification, Characterization, and Molecular Cloning of A Viral Protease Inhibitor

Proteolytic cleavage of precursor proteins by virus coded proteases is a common protein synthesis strategy utilized by many animal and plant viruses for synthesis of functional viral proteins. Prevention of these cleavage processes may offer a specific means for controlling replication of these viruses. The proposed project is designed to investigate a protease inhibitor which Southern University biologists found to exist in cowpea embryos. This inhibitor can completely prevent proteolytic processing of the precursor proteins of cowpea mosaic virus (CPMV) in an in vitro protein synthesizing system. The plan is to develop a purification procedure for complete purification of the inhibitor, to characterize the inhibitor biochemically, to compare the activity of the inhibitor to the activities of synthetic peptides, to determine the existence or absence of this inhibitor in CPMV resistance and sensitive cowpea plants, and to determine the amino acid sequence of the inhibitor using DNA cloning and sequencing methods. The long range goals of this research are to gain a complete understanding of the structural and functional properties of this inhibitor, and to use this inhibitor as a model for examining the possibility of utilizing protease inhibitors as antiviral agents for prevention or treatment of viral diseases. Besides the research goals, an additional objective of this proposed project is to present an opportunity to minority students and faculty of Southern University and other minority institutions to receive research training and to gain experience in modern molecular biology techniques, including genetic engineering techniques. This objective will be accomplished through seminars and workshops.